Structure and Permeability of the Outer Mitochondrial Membrane

9506113 Mannella This project aims at answering fundamental questions about the structure and function of the gated membrane channel, VDAC or mitochondrial porin, which is formed by a 31-kD protein in the mitochondrial outer membrane. Electron microscopy and digital image analysis are being applied to two-dimensional (2-D) crystals generated from isolated fungal outer mitochondrial membranes to determine the 3-D shape of the VDAC channel in two different conformations (and complexed with an endogenous modulator protein) at a resolution of about 2nm. Information about the structural and functional topography of the VDAC protein also are provided by sequence-specific antibodies and by partial proteolysis experiments. Regions of the channel polypeptide that are most likely to form transmembrane -strands are being identified by applying a novel algorithm for local multiple-sequence alignment (the Gibbs sampler) to sequences of VDACs and distantly related bacterial channels (several of which have known atomic structure). These varied kinds of "low-resolution" structural information will be used to construct a self-consistent folding model for the VDAC polypeptide. At the same time, systematic attempts will be made to grow bigger 2-D and 3-D crystals of the VDAC channel, suitable for higher resolution structure determination by electron and/or x-ray diffraction. These crystallization attempts have been made possible by recent success in expressing the mitochondrial protein in bacteria at levels over 100-fold greater than are possible with fungal cultures. %%% The cell and its internal compartments are bounded by membranes composed of lipids and proteins. The lipids form a bilayer sheath that is impenetrable to polar ions and molecules. Proteins make it possible for the different compartments to communicate, i.e., exchange material. For example, some proteins form channels, water-filled passageways across the membrane bilayer which open and close (or gate) in response to different stimuli. The basic structure of channels and the molecular mechanism(s) of their gating are only poorly understood. In this project, we are studying a channel that occurs on the surface of the intracellular organelle that is the cell's powerplant, the mitochondrion. The channel is switched by transmembrane electrical potentials between states with different degrees of openness, and this gating appears to be controlled by other proteins in the mitochondrion. Using electron crystallography and other biophysical and biochemical approaches, this research will determine the three-dimensional structure of the channel in different states, in order to understand how it is formed and how it opens and closes. ***